Phase II of Project 2061: Education for a Changing Future -- Leadership and Curriculum Resource Development

Project 2061: Education for a Changing Future is a long-term effort by the AAAS to contribute in a significant way to the reform of K-12 education in science, mathematics and technology. Phase I of Project 2061 recommends the fundamental knowledge, skills and habits of mind that all students should possess by the time they leave secondary school. In this project, which is Phase II of Project 2061, the teacher enhancement component will address the broad content preparation of 125 school educators, 100 teachers and 25 administrators. These participant-teams will be selected from five school districts around the country focussing on the provision of leadership for reforming the K-12 curriculum as it bears on science, mathematics and technology. School districts, state educational facilities and universities will participate in this collaborative project. The goals of the project are to (1) improve teachers' ability to teach science, (2) have significant input into the design of curriculum models and (3) provide leadership for the reform of K-12 science, mathematics and technology education. In addition to this grant, an amount equivalent to at least 75% of the requested NSF budget is being contributed by other sources, principally, the Carnegie Corporation which funded all of Phase I of Project 2061.